Postdoctoral Fellowship: MSPRF: Complexity Lower Bounds and Explicit Constructions

This award is made as part of the FY 2026 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines such, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Oliver Korten is “Complexity Lower Bounds and Explicit Constructions”. The host institution for the fellowship is the Institute for Advanced Studies and the sponsoring scientist is Irit Dinur.